Modern Optics for Physics and Engineering Majors

This project will equip a laboratory in Modern Optics for physics and/or engineering majors. Specifically, the laboratory will permit experimental work in the area of tuneable lasers and fiber optics. These students will be given the opportunity to develop a working knowledge of two very important areas in modern optics of particular interest to those pursuing jobs in experimental research and industrial work.